Processes And Coupling Investigation of Future Impacts of Coastal El Nino (PACIFIC)

El Nino events have substantial effects on weather across the U.S., thus better understanding of El Nino and its impacts is a national priority. A complication of El Nino research is the discovery of distinct "flavors" of El Nino, in particular the distinction between central and eastern Pacific El Ninos, which necessitates a broader conceptual framework for the phenomenon. Research conducted here considers a third flavor of El Nino which is little known compared to the others: the Coastal El Nino (COEN). COENs are characterized by severe regional warming of sea surface temperatures (SSTs) along the western coast of South America. COEN events develop rapidly and are difficult to predict, unlike the better known flavors that span the whole Pacific and are largely predictable due to their relatively slow evolution. Despite the highly destructive flooding impacts of COEN events our scientific understanding of them is limited, as is our ability to predict them and provide adequate warnings for their impacts. Work under this award advances understanding of COENs by determining how local ocean warming interacts with tropical atmospheric waves across different scales. By exploring these relationships under current and expected future conditions the research will improve sub-seasonal to seasonal predictive capacity. To maximize public benefit, the researchers will translate the findings into public workshops, an international scientific conference, a public webinar series, and educational podcast episodes.

The project tests three primary hypotheses: (1) The probability of extreme precipitation during COEN events is highly modulated by tropical wave activity; (2) anomalous atmospheric circulation changes coastal upwelling dynamics, which leads to COEN events; and (3) Future changes in the frequency and intensity of COEN events are primarily driven by shifts in SST anomalies and tropical wave activity. To examine these hypotheses, a multi-tiered approach is taken by evaluating satellite observations, high-resolution reanalysis datasets, and Earth system model simulations. In addition, a coupled atmosphere-ocean energy budget is calculated to isolate how anomalous circulation, driven by atmospheric wave activity, plays a direct and indirect impact on ocean circulation. Finally, to understand future shifts, the representation of COEN events is evaluated in a suite of Earth system model simulations that includes a large ensemble of simulations from the Community Earth System Models (CESM) to account for the range of natural variability and high-resolution, ocean eddy-resolving simulations. This modeling framework isolates the impact of grid resolution on near-coastal processes, quantifies uncertainty across ensemble spreads, and assesses the impact of future changes.